Primate Dental Development

This project explores the developmental differences in dental maturation between monkeys, great apes and humans. Through the study of dental radiographs housed in several research institutions, Dr. Smith will trace the pattern of eruption between these three groups, note the range of variation within each and then derive standards against which early human fossil materials may be evaluated. This research should greatly further our understanding of how early hominids matured. One group of anthropologists argues that early humans had an extremely delayed maturation pattern, such as our own, and this implies a long period of juvenile dependency during which complex culturally determined behaviors could be learned from parents. Another group believes that the early hominid pattern was more apelike and that therefore a lower level of cultural complexity was attained. Presently it is difficult to decide between alternatives because satisfactory modern growth standards are not avaiable. Dr. Smith's research will help to remedy this situation.